Postdoctoral Research Fellowships in Chemistry

This is the first year of a postdoctoral fellowship award to Dr. Michael Raftery. Dr. Raftery received his Ph.D. for work with Alexander Pines at Berkeley. He will be working with Robin Hochstrasser at Pennsylvania in order to learn about the application of ultrafast infrared laser spectroscopy to the study of energy transfer at the surface of adsorbates on metals and semiconductor nanoclusters. This represents a new direction for which Dr Raftery is well-prepared from his graduate studies applying NMR to motions at surfaces. %%% This is the first year of a postdoctoral fellowship award to Dr. Michael Raftery. He will be studying basic properties of adsorbates. These materials have the potential of improving the quality and performance of electrical circuits and could have a wide range of applications to the miniaturization of electronics.